Cybersecurity Education Workshop

George Washington University will bring together experts from the computer science education, cybersecurity research, and education and assessment communities to identify novel, compelling, and mutually beneficial approaches to advancing cybersecurity education. The one-and-one-half-day workshop will be held February 24-25, 2014 in Arlington, VA at the George Washington University Arlington Education Center. A workshop report will synthesize the workshop discussion and outline a set of novel, compelling, and mutually beneficial research ideas for advancing cybersecurity education in the short and long terms.